Geomorphic Development and Neotectonic Deformation of Paleolake Coasts in the Eastern Great Basin

This project will (1) reconstruct regional patterns of late Pleistocene coastal processes and coastal chronology in the eastern Great Basin, (2) survey 300 to 400 vertical control points on selected shorelines having relatively well constrained ages, (3) use those surveryed shorelines as long-baseline tiltmeters to reconstruct regional and local isostatic and seismotectonic deformation; (4) and model those data to constrain the mechanical/rheological properties of the earth. Recent studies of coastal chronology and shoreline morphometry in the basins of Lake Bonneville and two nearby paleolakes indicate that deformation of late Pleistocene shorelines resulted mainly from loads imposed by Lake Bonneville, but probably included far-field responses to loads imposed by continental ice sheets. This study will vastly expand the existing data set, to include the deformation of transgressive, maximum-stage, and regressive shorelines of the last deep-lake cycle in 16 paleolake basins in the eastern Great Basin. Studies of coastal chronology and coastal geomorphology will be combined with vertical control surveying using an electronic distance measuring theodolite to define the spatial and temporal dimensions of post-lacustrine deformation. At the Lunar and Planetary Institute, the observed deflections (shoreline tilt) will be modelled as the response of a layered elastic/visco-elastic earth to loads imposed by the small lakes, the much larger Lake Bonneville, and the still more massive but more distant Laurentide and Cordilleran ice sheets.